East Asia Region Planning Meeting: Biocultural Modeling of Health and Work Output

*** 9505961 Steegmann This a planning meeting to develop a research protocol for biocultural modeling of health and work output proposed by Dr. Theodore Steegmann, SUNY at Buffalo and Professor Francisco Datar, the University of the Philippines. The goal is to arrive at universal modes that fit a wide range of natural and cultural environments. Specialists from the U.S., China, the Philippines and Indonesia will participate in this meeting to pool their field experience, research specialization and contrasting cultural perspectives to arrive at broad, realistic structures. The meeting will be held Banaue, Luzon, the Philippines on June 10-24, 1995. This is an important topic in cultural anthropology. The results can affect adaptive theory and applications by community planners. ***